U.S.-Turkey Cooperative Research on a Model-Based Approach to Very Low Bit Digital Video Compression

Tekalp 9321144 This award will support collaborative research between the University of Rochester and Bilkent University, Ankara, Turkey. The investigators will study novel techniques for model-based very low bit rate digital video compression. They propose to concentrate on the model-based paradigm of 3- D flexible object models and 3-D motion, using a flexible generic wireframe model as a structural constraint for head and shoulder type scenes which are common in videophone applications. Due to the ill-posed nature of 3-D motion and structure estimation in the case of monocular imaging, they also propose to investigate the feasibility of stereo imaging in videophone applications where stereo imaging techniques can be used to estimate 3-D motion and structure parameters for model-based coding. This project coincides with international standardization activities. The proposed research project forms part of the fabric of current scientific interest in video compression and the successful completion of this international collaboration will benefit the electrical engineering communities in both the U.S. and Turkey. *** I:eom\abstekalp.eom